Electrical Transport and Optical Properties of Inhomogeneous Media (ETOPIM) Conference Traveler Funding

Milton
DMS-0629032

The investigator and colleagues organize the seventh in a
series of international conferences on the electrical, transport,
and optical properties of inhomogeneous media. Previous ones
were held in Ohio (1977), Paris (1987), Guanajuato, Mexico
(1993), St. Petersburg-Moscow (1996), Hong Kong (1999), and
Snowbird, Utah (2002). These conferences have provided a forum
for experimentalists and theorists to discuss the electromagnetic
and elastic properties of inhomogeneous media, now often called
metamaterials. ETOPIM7 brings together a diverse group of
scientists, enginneers and mathematicians to report on leading
research in these areas, to identify common themes and solutions
that thread through a variety of problems, and to point the way
for promising future research.

The electrical transport and optical properties of
composites and inhomogeneous media are of fundamental importance
to a broad range of highly interdisciplinary problems throughout
science and engineering. Nanocomposites, metamaterials, photonic
crystals and band gap structures, design of novel composites (and
as discovered recently, some with the predicted ability to cloak
or make objects invisible), imaging in geophysical, medical and
industrial applications, the role of sea ice microstructural and
optical properties in polar biology and climate, and defense
applications, are all examples of topics that this conference
covers. The grant supports US junior researchers and US
researchers from underrepresented groups to participate in
ETOPIM7. This strengthens the level of cross-disciplinary
expertise in the US, allows these researchers to present their
findings to an international audience, facilitates interactions
between junior US researchers and senior researchers in different
fields, and gives women and minorities the opportunity to
strengthen their contacts and present their work.